Frontiers in Earthquake Engineering and Loss Reduction: Information Service in Earthquake Hazard Mitigation

CMS 9616626 Lee This award provides funding for the Information Service at the National Center for Earthquake Engineering Research located at the State University of New York at Buffalo. The Information Service offers traditional and non- traditional access to information in earthquake engineering, seismology, and the socioeconomic sciences. In the ten years since it was established, the Center's Information Service has become an important contributor to the National Earthquake Hazards Reduction Program as well as a major provider of information to the worldwide community of researchers and practitioners in earthquake hazard mitigation.